Coordination Chemistry and Catalysis

This project in the Inorganic, Bioinorganic and Organometallic Chemistry Program is directed at elucidating the reactivity patterns of coordination and organometallic compounds. Of particular interest are the kinetics and mechanisms of reactions of such compounds which are pertinent to catalytic applications. Specific themes include: (1) The mechanisms of asymmetric catalytic hydrogenation and related reactions and the origin of enantioselectivity in such reactions. (2) Determination of transition-metal alkyl bond dissociation energies and of the thermodynamics of organometallic reactions. (3) Mechanism and catalysis of CO migratory insertion reactions and the utilization of such catalysis to increase the rates and selectivities of CO-utilizing homologation reactions. (4) Coordination chemistry and catalytic properties of transition metal polyhydride complexes, especially those with phosphine ligands, with emphasis on the utilization of such compounds as catalysts for the hydrogenation of ketones, esters and arenes, and for the activation of C-H bonds. The methods employed in these studies include kinetic measurements (including techniques for measurement of the rates of fast reactions) and the use of NMR, FTIR and other spectroscopic methods to characterize intermediates in catalytic cycles. This project is expected to provide a better understanding of the operation of some important industrial catalysts and to contribute to the rational design of new catalysts.